International Conference on Microbiology of Waters and Wastewaters - Research Needs; February 8-11, 1988; Irvine, CA

This is an award to support conduct of an international conference on the Microbiology of Waters and Wastewaters. The conference will be held at the University of California-Irvine from February 8-11, 1988 and is being conducted under sponsorship of the United States National Committee of the International Association on Water Pollution Research and Control. A significant component of this conference will be consideration of research needs as are applicable to current deficiencies relating to the conference topic.